37th Maize Genetics Meeting, to be held March 16-19, 1995, Asilomar, CA

9500620 Cone The 37th annual Maize Genetics Meeting will be held March 16-19, 1995 at Asilomar, CA. The meeting serves to bring together scientists working with corn as an experimental organism and from all levels, students to senior Professors, in an enviroment which encourages close interaction. ***